Mathematical Sciences: Seventh International Conference on Domain Decomposition in Scientific and Engineering Computing, Penn State University, October 27-30, 1993

The Seventh International Conference on Domain Decomposition Methods in Scientific and Engineering Computing will be held at Penn State University from October 27 to 30, 1993. Domain decomposition refers to a class of methods for the simulating large-scale scientific and engineering systems on computers. Using a divide-and conquer strategy to obtain the solution to a massive problem by combining the solutions to numerous smaller ones, domain decomposition offers the possibility of simulating systems that are too large and complex even for today's powerful supercomputers using conventional solution methods. Such problems include long term climate prediction and the study of global change and the design of space vehicles and structures. Among computational scientist, engineers, and mathematicians, domain decomposition techniques are of particularly intense interest now because they are well adapted to emerging high performance computer architectures. This conference will convene academic and industrial researchers in domain decomposition and allied areas in order to disseminate recent advances and stimulate further development in areas ranging from basic theoretical research on the analysis and validation of domain decomposition algorithms to specific industrial applications. The conference will enhance the technology transfer between academia and industry, and provide opportunities for students and young scientists and engineers to become involved in this important new class of computational methods. Graduate students, young researchers, women, minorities and people with disabilities are being especially encouraged to attend the conference and to contribute papers. The proceedings of this conference will be published by the American Mathematical Society and are expected to become an important resource for researcher and users of domain decomposition.